Excellence in Science Education Teacher Preparation Program

Trinity University will modify their existing science teacher preparation program with the addition of five interrelated educational components. These are: (1) a workshop for prospective science majors with emphasis on teaching science as a career; (2) the establishment of 10 scholarships for students who will major in science and who have a substantial interest in teaching careers at the secondary level; (3) the development of a new course, "Controversy in Science and Technology," that will critically examine the history, development, and implications of scientific and technological issues confronting society; (4) the development of a second new course, "Innovation in Science Education," that will provide prospective secondary science teachers opportunities to develop unique and innovative approaches to science instruction in an independent study program; and (5) the development of a third new course, "Discovery," that integrates the basic disciplines of science that is suitable for prospective elementary school teachers, coupled to a mentorship program for prospective secondary science teachers. These modifications in the Trinity University program will make it an adaptable model for teacher preparation at comparable liberal arts colleges.